Operation of the Nuclear Structure Research Laboratory (Physics)

This grant supports research using the newly upgraded MP tandem Van de Graaff accelerator, a variety of experimental equipment, including a unique recoil mass spectrometer, at the University of Rochester's Nuclear Structure Laboratory. Experiments will include studies of nuclear shapes by Coulomb excitation, heavy-ion induced transfer reactions, nuclear isomers on a microsecond time scale, the spectroscopy of neutron deficient nuclei (particularly the light krypton isotopes), hyperfine interactions, correlated two photon decay in heavy-ion reactions, breakup in Li-7 induced reactions, sub-barrier transfer, and heavy-ion reaction mechanisms. In addition, atomic mass spectrometry will be investigated in a wide variety of fields, including geology, hydrology, cosmochemistry, Ca-41 dating of old bones, materials research and nuclear reaction cross sections. Some of this work involves extensive collaboration with outside users.